Effects on Supernovae and their Remnants of Asymmetric Envelopes Caused by Outflow from Binary-star Progenitors

The violent star explosions, known as supernovae, are responsible for
many features of our Universe. They produce and distribute many of
the heavy elements that make up stars, new planets, and also people.
The energy supernovae release into the interstellar gas heats and stirs it,
and some of that energy goes to accelerating a few subatomic particles
to extreme energies -- the enigmatic cosmic rays that fill our Galaxy
and constantly rain down on the Earth. In the last few thousand years,
several Galactic supernovae were visible at Earth and carefully
recorded by naked-eye observers. The remnants of those supernovae,
expanding gas clouds emitting radio waves, X-rays, and visible light,
can now be studied in detail, along with hundreds of older remnants
from supernovae too distant to be seen on Earth with the naked
eye. This proposal will model the effects of supernovae that occur in
systems with two stars gravitationally bound to each other.

Recent evidence suggests that many supernovae originate in binary systems,
pairs of stars orbiting one another. The more massive stars shed material as they
age, particularly in the stages just prior to explosion, so the explosions
take place in a complicated environment of gas. These investigators will compute
state-of-the-art simulations of pre-supernova environments, and then model
the explosion, to see what effects it has on the appearance of the supernovae
at the time of the event, and on the remnants of the events, which are still
thousands of years later.

The investigators hope to identify particular features that such supernovae
and remnants might show that would be clues to the environments that
gave rise to them. In addition, a few particular objects, such as
historical remnants from supernovae seen at Earth in the last few
hundred years, will be studied, to try to identify the types of stars that
created the explosions.

The investigators will use high-performance computing systems at national
facilities, and will train students in the most up-to-date applications of
computing to complex problems. Improving our understanding of supernovae adds an
essential piece to the grand narrative of the nature of our Universe
and the place of humanity in it.